Support for the Tenth Cambridge Workshop on Cool Stars, Stellar Systems, and the Sun to be held 15-19 July 1997 in Cambridge, Massachusetts

AST 97-22839 Andrea Dupree This award supports a Workshop on Cool Stars, Stellar Systems, and the Sun, to be held 15-19 July 1997 in Cambridge, MA. The meeting will focus on the interdisciplinary study of cool stars, including observations from the infrared to X-ray, and theory. Current topics such as brown dwarfs, stellar activity cycles, high-resolution techniques and helioseismology/asteroseismology will be addressed by review talks; workshop sessions will treat topics such as rotation and lithium, abundances, evolved stars, and field T Tauri stars. ***